Sweeping Change in Manageable Units: A Modular Approach for Chemistry Curriculum Reform

The purpose of this program is to develop new curricula, materials and methods which will enhance the appreciation and learning of science, especially chemistry, for every undergraduate student such that all college graduates will command the knowledge and skills necessary to permit continued learning, lead productive lives, and make informed decisions. To accomplish this mission, a modular approach to teaching chemistry in the first two years of the undergraduate curriculum is being developed and evaluated. Modules of one to four weeks present fundamental chemistry to students in the context of a real-world problem or application and emphasize the links between chemistry and other disciplines. In collaboration with the ChemLinks Coalition, modules are being developed, tested and refined at the two- and four-year colleges and research universities comprising the two consortia. Curriculum materials, including text, lab, and multimedia components suitable for students from diverse cultural and ethnic backgrounds and usable at a wide variety of undergraduate institutions are being produced and distributed by an established publisher. Teaching methods which utilize current understanding of learning processes and emphasize active learning and the full spectrum of modern technologies are being supported, tested and promulgated. A model support infrastructure for development and assessment of new materials and methods is being provided. A framework for continuous improvement of curricula should result from the work and be institutionalized within the consortium. Faculty workshops and sessions at national and regional meetings will be conducted to guarantee dissemination. Our consortium institutions now participate significantly in pre-service teacher training and education of technology specialists and are developing new programs in these areas. Thus, our program will strongly impact the Advanced Technological Education and Teacher Preparation Programs by develo ping modular materials appropriate to the task of educating future teachers and technology specialists.